Mathematical Sciences: New Directions in Integrable Systems

New areas in the theory of integrable systems: 1)Exact time-discretizations of lattice integrable systems and related infinitely-precisenumerical schemes; 2)q-analogs of discrete integrable systems; 3)Perturbations of classical mechanics originating in Quantum Groups; 4)Relativistic analogs of integrable systems; 5)Geometric perturbations of infinite-dimensional Hamiltonian and integrable systems The proposal seeks to develop solutions to the following open problems: 1)Construction of error-free numerical approximations to fundamental continuous systems; 2)Quantisations of these, and first-order influence of these quantum effects on classical systems; 3)Relativistic versions of classically important nonrelativistic systems; 4)Invariant analysis (i.e. independent of any particular point of view) of dynamical systems.